SBIR Phase I: A Mixed-Computation Neural Network Acceleration Stack for Edge Inference

The broader/commercial impact of this Small Business Innovation Research (SBIR) Phase I project is to improve the sustainability of artificial intelligence by reducing carbon emissions for training neural networks and performing inference at the edge. Additionally, the technology will spawn new applications and use cases for edge inference (including personal health, advanced data analytics, and informed decision-making), resulting in significant improvements in people's lives and well-being. The commercial potential is substantial (i.e., tens of billions of dollars annually), as are the potential economic benefits to US high-technology industries.

This Small Business Innovation Research (SBIR) Phase I project sets out to develop a mixed-computation neural network acceleration stack utilizing optimally designed and provisioned hardware resources. This acceleration stack empowers a heterogeneous hardware realization of a neural network inference engine whereby computations required in various network layers may be done by using different number systems and different precision levels. The acceleration stack can thus achieve very high inference speed and energy efficiency while maintaining the inference accuracy compared to a homogeneous hardware realization of the network using 16-bit floating point computations. To support the design, optimization, and runtime efficiency of this edge inference accelerator, a full suite of software and design automation tools comprising a distiller for neural network architecture optimization and training, a logic synthesizer for generating optimized gate-level realization of very large and complex Boolean and multi-valued logic functions, a compiler for generating and scheduling control-flow and data path instructions that are executed on the target fabric, and a runtime system for orchestrating data movement will also be provided. The resulting edge inference accelerator will be deployable on resource-constrained, energy-limited, and cost-sensitive edge devices.